Scanned Probe Microscopy: Research Based Curriculum Development

9420451 Russell ABSTRACT The purpose of the proposed project is to integrate the basic concepts and applications of scanned probe microscopy (SPM) into the undergraduate and entry level graduate engineering curriculum by developing lectures, laboratories, computer modules, and video-based instructional materials. Scanned probe microscopy (SPM) has grown, in little more than a decade, from an instrument used only by surface scientists into a broad family of microscopical and microanalytical techniques that are increasingly employed for engineering applications. The rapid development of this new technology has outpaced the supply of engineers having the appropriate training in the fundamental aspects of scanned probe microscopy, as well as the details of engineering applications. The proposed project will integrate these concepts and skills into the educational program of a significant number of engineers, so as to fill the present need, as well as facilitate advances in technology that may result from taking advantage of SPM's unique capabilities. ***